Uncertainty Quantification for Low-Rank Factorization Models in Complex Setups: Theory, Computation, and Applications

This project tackles a foundational challenge in modern data analysis: providing reliable measures of confidence for the unobserved structures in large, complex datasets that are often organized as matrices and/or networks. Such hidden structures arise throughout contemporary scientific and industrial domains, ranging from gene expression measurements that inform individualized patient care to networks of interactions that shape biological, social, and artificial intelligence systems. Recovering these structures from massive, noisy data, typically done by factorizing complex matrix/network measurements into compact, interpretable, and accessible summaries that reveal meaningful signal and support downstream decision-making, has emerged as a powerful strategy. As data scales and complexity grow, accurate recovery of these structures requires principled, rigorous, and easy-to-implement uncertainty quantification methods, enabling researchers and decision-makers to assess the reliability of the inferred structures with confidence. This project will address these challenges by developing new theory, methodology, and practical tools for uncertainty quantification in complex, high-dimensional data. In addition, it will also lead to broad impacts through the development of publicly available interfaces, the creation of a new relevant graduate-level course, and the training of graduate students across statistics, informatics, biostatistics, and mathematics, fostering interdisciplinary collaboration.

More specifically, this project will advance the statistical foundations of uncertainty quantification for matrix and network data through three complementary research objectives. First, it will develop Bayesian inference procedures for matrix factorization models under non-smooth conditions using sampling-based algorithms to deliver valid inference. Second, the project will design fast variational inference algorithms for Bayesian negative binomial factor analysis, enabling scalable, statistically principled analysis of over-dispersed count data such as RNA sequencing measurements that inform stratified and individualized treatment. Third, the project will construct a novel modeling and inferential framework for heterogeneous multilayer networks by extracting consensus information shared across heterogeneous layers via normalization. Collectively, these contributions will consolidate the theoretical understanding of uncertainty quantification for complex matrix and network data with distributional results and produce publicly available interfaces that bridge statisticians with real-world applications in genomics, network science, and large-scale machine learning.